Research Experiences for Undergraduates in Computer Vision

This is a collaborative project of the University of Central Florida and the University of South Florida. Ten undergraduate students will be involved in the program which will span the calendar year. The students will select from several possible projects to provide a more active involvement in the program. They will follow a course of general immersion within the research environment including regular meetings, and plans for professional presentations. Examples of the kinds of projects with which the participants will work, are the following: segmentation of optical flow field, modeling human walking for computer vision system, pose estimation using motion trajectories, function-based modeling of articulated objects, range image analysis, and parallel algorithms in computer vision.